Polynomial mappings and related matters

The PI proposes to study several questions involving arithmetic aspects of
maps between algebraic varieties. These questions include new far-reaching
generalizations of major results about abelian varieties, including the
Mordell--Lang conjecture (Faltings' theorem) and Merel's uniform boundedness
theorem for rational torsion on elliptic curves over a number field. In the
generalizations, the group structure in an abelian variety is replaced by
objects which exist in any variety. The PI's study of maps between varieties
will yield results about dynamical systems, Diophantine equations,
automorphism groups of curves, and value distribution of meromorphic functions.

Polynomials whose coefficients are rational numbers are a fundamental
tool in many aspect of modern life, ranging from
information security to weather prediction. These basic objects have been
intensively studied for over two thousand years, but recent years have seen
the discovery of previously unexpected phenomena. The proposed research will
examine these fundamental objects from several perspectives. This will likely
yield immediate consequences in computer science, in addition to long-term
consequences across many disciplines. Finally, much of the proposed research
will be carried out jointly with graduate and undergraduate students, so that
it will make an educational contribution in addition to its scientific impact.